Representation Theory of Finite Dimensional Algebras

The investigator's main theme is to explore the representation theory
of wild finite dimensional algebras by analyzing specific classes of
representations and the homomorphisms among them with an array of
methods, ranging from geometric through combinatorial to
homological. Roughly, these classes can be grouped under the
following headings: (1) Classes of modules having fixed sequence of
radical layers and, more generally, classes of modules with fixed top
and fixed vector space dimension. (2) Classes of modules forming
contravariantly finite or covariantly finite subcategories within the
full category of finitely generated modules. (3) Classes of infinite
direct sums (mainly of generic and finitely generated modules)
enjoying finiteness conditions over their endomorphism rings. A
related investigation aims at the geometry of finite complexes of
modules and derived categories as an alternate setting for the study
of maps among representations. There are methodological
interconnections among these lines, as well as strong links in terms
of the overall strategy of gaining a better understanding of algebras
that have wild representation type.

Under a wider angle, the project should be seen in the following
framework: The majority of our physical models for the universe are
placed within finite dimensional vector spaces. Frequently, such
spaces carry additional structure, such as a Lie or associative
algebra structure, for example. Associative finite dimensional
algebras are the objects of the investigator's research. One approach
towards understanding them is to explore their representations, which
can be thought of as 'linearized photographs' within sets of square
matrices, both coarse-grained and fine-grained pictures containing
valuable information. The representation type of the considered
algebra is called 'tame' if the representations of any fixed matrix
size can be subdivided into finitely many 'manageable' series (these
series themselves may be infinite), otherwise it is called 'wild'.
The wild case being the one predominantly encountered in mathematical
nature, this is the case which the investigator is presently
tackling. Her idea is to thoroughly understand important subclasses
of the full class of representations of algebras of wild type, and to
thus establish an interlinked mosaic of analyzed territory. Attention
is being paid to choosing lines that optimally connect with the needs
of adjacent fields (such as the theory of algebraic or quantum groups)
and with the body of insights already established.